Updating the Training of Radiation Scientists

Over the past 15 years a radiation training laboratory and program has been established and equipped through NSF Grants, local school support and industry donations. St. Mary's College has become a center of excellence in the training of radiation scientists. This project fills important gaps in the program's instrumentation so that students can be properly prepared to enter the modern industrial and academic research laboratories. Many modern scientific instruments are now computer based, one central processing personal computer runs several different instruments which are purchased as plug-in boards. Operating instruments from a computer terminal is a fact of life in the scientific laboratory of today. This method is rapidly replacing the dedicated instrument. The computer based Multichannel Analyzer will give students this important experience as well as strengthen their laboratory training in many aspects of the radiation sciences.Various radiation detectors update the collection of detectors and allow students to do interesting new experiments. The use of high quality, up-to-date scientific instruments has proven a great motivational factor for students. Their sense of confidence is greatly boosted by these experiences and their interest in pursuing graduate studies has been enhanced. About 60% of the physics majors and minors go on for graduate studies.